Century of Discovery

Proposal No. ESIE 93-55522 Proposal Name: CENTURY OF DISCOVERY PI: Paula Apsell Total NSF Award: $3,695,700 Anticipated Completion Date: Fall 1998 ABSTRACT: WGBH will develop, produce, and distribute a comprehensive project that will review science of the twentieth century. The major components of the project will be a series of five, two-hour, prime time documentary programs for PBS, an outreach campaign to involve the public through informal and formal science education institutions and organizations, material for use in formal classrooms, and a science museum component. The focus of the series will be to review the science of the twentieth century by telling the dramatic story of the struggle to understand ourselves and our world over the past 100 years -- a time when science advanced further than in previous eras combined and when scientific discipline underwent a revolution. However, because at the close of the century there is an ever-widening gap between what scientists know and what most of the public comprehends, the series will explore the century's most enduring scientific endeavors with each two-hour program probing several related fields of investigation and application: views of the universe and of matter; origins of the Earth and of life; health, medicine, and the human body; human nature and behavior; and technology and engineering. It will offer viewers an opportunity to view 100 years of scientific pursuits as a whole, to recast their perceptions of science and scientists, and to be intrigued and inspired by a view of science as a never-ending and deeply human quest for answers and solutions. The outreach component of the project include: o Video-based Components - videocassettes of the series, video modules selected for classroom use, level one videodiscs, and a prototype for a CD-ROM for home learning. A Discovery Challenge Activity - a national campaign targeted primarily for girls and boys 11-14 years of age. The two-phase activities will be offered through middle school science and social studies classes; through youth groups such as Girls Inc., Family Science Programs, 4-H, and Girls and Boys Clubs; at museums and science centers; and through other informal education outlets. Activities will be designed so they can be undertaken by youth with a wide range of interests, learning styles, and skills. Print Components - teacher's guide, video module activity guide, videodisc guide, poster, and a companion trade book. On-line Component - an electronic bulletin board and e-mail center related to the project. Public access sites will be established in libraries, community centers, and schools throughout the country and members of the public with home computers will be able to connect to WGBH at no cost. Service and activities offered on-line will include the ability of viewers to critique programs, ask questions of the production team, download educational materials, and ordering project material. The bulletin board will provide an electronic forum for educators to exchange strategies and ideas as they use the project's resources and enable participants in the Discovery Challenge to tap into the on-line resources and share information. The on-line component will be managed and controlled at WGBH. Museum Component - consisting of a museum tool kit and activities to be incorporated Science-by-Mail. Paula Apsell, executive producer for NOVA and director of the WGBH Science Unit, will serve as executive-in-charge of production. Jon Palfreman will be executive producer and will head up a project team consisting of the executive editor, Thomas Friedman, a senior producer, and two producers. Outreach activities will be the responsibility of Beth Kirsch, Director of Educational Print and Outreach, and Simone Bloom, Outreach Manager.